Algorithmic Geometry of Numbers

The project aims to develop mathematics in the area of Algorithmic Geometry of Numbers, apply the mathematics to sequential and parallel algorithms for Integer Programming, testing and ensuring randomness of sequences and numerical integration. It is intended that some of the algorithms will be implemented.